CAREER:Elucidating the Reaction Dynamics of Environmentally Important Halogenated Compounds

Philip Reid of the University of Washington has received a CAREER award in the Experimental Physical Chemistry Program to study reaction dynamics of environmentally important compounds. Reid will focus on condensed phase reactions of halooxides and other halogenated species. Resonance Raman intensity analysis or time-resolved Resonance Raman spectroscopy will be used to investigate the reactivity from initial excited-state nuclear evolution to the appearance of ground state photoproducts. The teaching program will involve the creation of new courses and instructional tools to enhance the undergraduate chemistry curriculum. Internet-based teaching methods and a new course in physical chemistry for environmental scientists are being developed in response to a recently created interdisciplinary program in environmental education. Undergraduate and graduate students from the University of Washington will participate in collaborative research at Pacific Northwest National Laboratories.